Continuous Dynamical Systems

Proposal Number: DMS-0204081
PI: Kuperbeg

ABSTRACT

Research will be conducted on continuous dynamical systems on
manifolds of dimension three and higher, with emphasis on
compact invariant subsets on which the flow is minimal.
Continuing the work related to the real analytic solution to
the Seifert conjecture on aperiodic flows acting on the
three-dimensional sphere, the PI plans to classify the minimal
sets in such flows with respect to their homological and shape
theory properties. Minimal sets shape-equivalent (in the sense
of Borsuk) to a polyhedron often appear in flows as
attractors, and are of special interest. Minimal sets of
non-polyhedral shape are usually approximated by circular
orbits or by other movable sets with the so called UV-property.
They have very complicated dynamics around them, which can be
investigated through the structure of the family of the
approximating invariant sets. Circular orbits are extremely
important in celestial mechanics as they appear as paths of
movement. Smaller particles, dust, can align along a braided
orbit, and in the continuous case, in a mathematical model,
this "orbit" could be an invariant set, aperiodic but
"circle-like", or "graph-like" such as the
well-known Denjoy continua. A volume-preserving dynamical system,
associated with incompressible fluids, imposes restrictions on
the flow outside the special invariant collection and is an
important area of study as well.

The theory of dynamical systems was developed in an effort to
provide a mathematically rigorous description of real physical
phenomena. It is therefore closely connected to many domains
of science: mechanics, various areas of physics, biology, and
economics. Dynamical systems connect several branches of
mathematics such as analysis, topology, geometry, algebra,
and combinatorics.